Scientists, Educators and National Standards: Action at the Local Level

9450513 Ferguson This project seeks funds to support a science education forum entitled "Scientists, Educators, and National Standards: Action at the Local Level." The form is to address the understanding of national standards and the issue of how scientists from universities, government and other agencies can contribute to the success of the standards and the proposed science reform. Efforts are to be made to determine how scientists and engineers might best help to improve science education in their local schools. The building of partnerships between scientists, engineers and K-12 teachers will be a major thrust of this forum.